PEST Sequences as Signals for Rapid Proteolysis

Rapidly degraded proteins contain sequences rich in proline (P), glutamic acid (E), serine (S) and threonine (T), and it is proposed that these PEST regions confer metabolic instability upon proteins possessing them. Although the evidence supporting of the PEST hypothesis has increased substantially over the past year, it is still mostly correlative. This research tests the hypothesis directly, elucidates those features of PEST regions essential for rapid proteolysis and elucidates the mechanism(s) by which PEST proteins are degraded. PEST-conjugated proteins will be radio-iodinated and their metabolic stabilities measured by introducing them into cultured mammalian cells using RBC- mediated injection. Alternatively PEST sequences will be cloned onto the N terminus of dihydrofolate reductase, and injected into mammalian culture cells. By varying residues within the synthesized or cloned PEST sequences, essential features of the degradation signal should be discovered. Using differentially labeled wild-type and PEST-deleted ornithine decarboxylase molecules it will be possible to distinguish PEST-specific proteolysis from indiscriminate cleavage. Most proteins are studied from the point of view of their synthesis. Yet the living cell makes and degrades proteins in its normal functioning. This study centers on an innovative hypothesis about how the cell chooses which proteins to degrade and when to do it. This is an underexplored but important topic in cellular biochemistry.